Collaborative Research-Smoluchowski Equations: Analysis of Dynamics, Singularities and Statistics in Complex Fluid-Particle Mixtures.

In this collaborative project, the investigators study the
interaction between fluids and particle distributions. They
examine the nonlinear Smoluchowski equations with both passive and
active interaction with an ambient fluid. The specific goals are:
a study of the transition to nematic states in the high
concentration limit, effects of shear, complex dynamics and modes
of coupling. Particular attention is given to the active
interactions with fluids, singularity formation, the stabilization
of high concentration suspensions, and the dissipation effects due
to the insertions.

Many biological and artificial materials are involved in
processes in which melts or fluid flows carry inserted particles.
The orientation of the particles and their overall distribution
influence the physical and chemical properties of the mixture.
The investigators carry out a mathematical study of models of such
mixtures. The goals are to describe qualitatively the patterns
formed by the particles, which of these patterns are stable, what
are the conditions for the creation of discontinuities in the
patterns, and what are the energetics and bulk physical properties
associated with them. Better understanding of the effects of
small-scale nonequilibrium dynamics on large-scale transport in
complex particle-fuid systems, such as the viscous polymer
suspensions considered here, is important in chemistry, biology,
and engineering.